GOALI: Experiments and Simulation on the Flow and Heat Transfer Near the Hub Endwall of a Stater Vane Passage

Gas turbines create a very harsh thermal environment because of the high temperatures, complex flows, and the need to provide critical cooling to the structural components. Providing effective cooling has proven to be a difficult problem because of the three dimensional nature of the flow. The research will explore the flow field and heat transfer in a turbine vane passage with emphasis on the region of the endwall. Experiments and simulations will be carried out in which the vortical motions will be altered through secondary air jets and contoured passages. The objectives are to understand the details of the unaltered flow field, the effect of control strategies, and to develop effective techniques for modeling and simulating the altered flow, thus leading to improved design techniques. The experiments will involve flow visualization, velocity measurements, and liquid crystal thermography. Modeling will be done using both the Reynolds averaged Navier Stokes and detached eddy simulation approaches. The work will be a cooperative effort between Arizona State University and Allied Signal Aerospace Engine, Phoenix, AZ.